MRI/RUI: Acquisition of a MALDI-TOF Mass Spectrometer for Research and Education in Chemistry and Biochemistry

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at St. Cloud State University will acquire a Matrix-assisted Laser Desorption Ionization - Time of Flight (MALDI-TOF) Mass Spectrometer. This instrument will be used in a wide variety of studies, including a) the identification of molecular determinants of cellular sensitivity to cytostatic/cytotoxic agents that may be unique to tumor cells; b) the identification of genetic polymorphisms in human aldehyde dehydrogenases that will render differential cellular sensititivy to cytotoxic agents; c) characterization of electroactive polymers; and d) the study of precursor molecules used as dopant sources for fluorescent sol-gel glasses. In addition, MALDI MS will be a major component in a new laboratory curriculum for biophysical chemistry.

Matrix-assisted laser desorption ionization (MALDI) time-of-flight (TOF) mass spectrometry is the technique of choice for obtaining accurate molecular weights on molecules up to and over 300,000 daltons, with extremely high sensitivity. Use of a MALDI-TOF mass spectrometer has therefore become a standard technique in most DNA/protein core facilities. The ability to obtain very accurate molecular weights of biological molecules is fundamental to all biological and biomedical research and essential in a modern research and training environment. These studies will have an impact in the areas of biophysical and materials chemistry.